The Fabric of the Cosmos

WGBH plans to produce a special NOVA series, The Fabric of the Cosmos, based on the best selling book of the same name by physicist Brian Greene. The four 60-minute television programs will be the center piece of a multimedia project that employs multiple platforms including national primetime PBS broadcast, the PBS Web site, podcasts, and an educational outreach campaign that features "Cosmic Cafes." Project goals are to: 1) enhance the public's appreciation of physics by exploring the unfinished story of space and time; 2) find innovative ways of using animation and graphics for television, the Web and on the new media platforms to explain these concepts; 3) bring challenging and exciting ideas in science to people unlikely to encounter them elsewhere by holding public events in communities across the country; and 4) forge effective collaborative partnerships with the American Institute of Physics (AIP), American Physical Society (APS), National Society of Black Physicists (NSBP), American Library Association (ALA) and others to maximize impact of the project. Multimedia Research will conduct formative evaluation and Inverness Research Associates will conduct summative evaluation.